Laboratory Instrument for a Community College Biotechnology Program.

MiraCosta College has instituted a new vocational education certificate program in biotechnology as a result of student and industry demand. The certificate program is designed around the existing curricula at MiraCosta College with the addition of two courses specifically focused on biotechnology. One of these courses, Methods in Biotechnology will require students to conduct laboratory experiments that teach the underlying molecular biology concepts and techniques essential to biotechnology.